Doctoral Dissertation Research: Globalization in the Health Sector

SES-1029564
PI: Patricia McManus
Co-PI: Shiri Noy
Institution: Indiana University

International financial institutions, in particular, the International Monetary Fund and the World Bank, have played a critical role in spreading ideas about health reform to developing nations. In this study, Latin American countries' different responses to the efforts by international financial institutions are investigated including identifying the factors that explain the variation in responses. Interviews will be conducted with key informants and a content analysis will be carried out on policy documents to examine how different levels of state capacity and autonomy shaped health reform in three countries: Peru, Costa Rica and Argentina.

Broader Impacts:
This project will be of interest to political and medical sociologists, public health scholars, policy researchers, and Latin Americanists as it extends sociological theories and examines the process of health sector reform in a new context. The results should be of interest to policy makers who may find this information valuable in the construction of future plans, agreements and reforms.